ROW: Controls on Carbonate Mineral Cycles on the Campeche Slope: Pelagic Versus Platformal Sources

This study focuses on the development of depositional sequences and sedimentary cycles in deep-water continental margin carbonates in order to: 1) determine the controls of climatic, sea level, and oceanographic changes on evolution of slope carbonate sequences; 2) compare climatically-meditated sedimentary cycles within and outside the influence of vigorous geostrophic currents; and 3) compare modern deep-water ramps with ancient carbonate sequences for paleoenvironmental interpretations. Material from DSDP sites on the Campeche ramp off Yucatan peninsula will be used for this purpose. The study eill resolve the role of oceanographic setting in generation of deep-water carbonate cycles. The nearly pure carbonate ramp slope of Campeche Bank may provide a modern analog for the development of limestone sequences inthe rock record.